Fundamental Processes of Relevance to Plasma Processing of Materials

Proposal Number: ECS-96266217 Principal Investigator: Lal Pinnaduwage and Panos Datskos "Fundamental Processes of Relevance to Plasma Processing of Materials" ABSTRACT Comprehensive studies of electron attachment to molecules of specific interest to plasma processing will be performed. The presence and importance of the large negative ion densities in processing is only recently recognized and its possible roles are being actively investigated. Negative ions are very reactive and may contribute to etching/deposition processes; in some cases they have been shown to be the precursors for particulate formation in processing discharges. The following studies will be undertaken: (i) electron attachment studies on electronically-excited states of molecules relevant to plasma processing e.g., CH4, CF4, SiH-, Cl2. (ii) measurement of electron attachment to radicals resulting from the above molecules (iii) measurement of the electron attachment to the above molecules in their ground electronic states including vibrationally-excited states when consistent data are not available (iv) study of the influence of rare gases on negative ion formation when rare gases are mixed with the above gases under discharge conditions.